REU/ROW: Differential Growth and Herbivore Effects on Freshwater Macrophytes

This project includes a series of activities to conduct research and learn research techniques relevant to the ecology of aquatic macrophytes (higher plants). The P.I. will visit Dr. Titus' laboratory to learn techniques for raising various life forms of aquatic plants and will gain experience from rearing propagules from Lake George. Herbivore effects will be studied in aquaria and through field sampling, and survey work will be done to locate lakes in which future experiments can be done. Other planning work includes conducting pilot trials on spot herbicide use, gathering field data on plant emergence, and finding means to count individual (genetically identical) plants in stands of clones. These ROW supported planning activities will prepare the P.I. for developing a competitive research project on macrophyte ecology. The research thrust will be on effects of reproductive structure (e.g., rhizomes, turions) on plant success or on the effects of herbivores on aquatic plant community structure. Both areas are promising avenues for future proposals.